Combinatorial Models of Perverse Sheaves

The principal investigator will study combinatorial models of
categories of perverse sheaves on spaces which carry important
combinatorial and representation theoretic information, mainly
flag varieties and toric varieties. The models use data obtained
from natural symmetries on these spaces via the moment map. These
methods will be applied to problems in representation theory,
including Lusztig's conjecture on modular representations and
Beilinson, Ginzburg and Soergel's theory of Koszul duality for
Lie algebra representations. The PI and his collaborators will
develop computer algebra software to do computations with these
models.

This project involves geometry related to representation theory.
Representation theory studies ways to present a given algebraic
object, usually a group of symmetries, as a collection of linear
transformations. It has applications to many fields, from number
theory to mathematical physics. An important thread in modern
representation theory involves extracting algebraic information
from the geometry of an associated space, which is generally also
intrinsically beautiful in its own right.